In Situ Measurements of Halogen Oxides in the Arctic Troposphere

9632968 Avallone This Small Grant for Exploratory Research is being awarded for the testing and deployment of a prototype instrument for detecting halogen oxides in the troposphere. An existing and proven instrument that has made measurements of chlorine monoxide and bromine monoxide in the stratosphere has been modified to perform under the higher total pressure and larger water vapor partial pressure conditions characteristic of the troposphere. Bromine species are believed to play a dominant role in the observed sudden depletions of ozone over the arctic region during springtime. Bromine monoxide has been detected in large abundance during these events. The PI will participate in the ARCTOC '96 campaign which is being sponsored by the European Community during March-May 1996. During this campaign, bromine monoxide will be measured using other techniques as well, thereby providing an opportunity to test the modified instrument. If this instrument works as anticipated, halogen oxide measurements will be provided with faster time response and lower detection limit than other techniques currently in use.